A Novel Three-Phase Biochemical Reactor for the Removal of Copper from Aqueous Media

This is a feasibility study of the idea of forming calcium alginate pellets and using the pellets to remove low levels of cupric ion from waste water. The goal is to lower the cupric ion from 300 ppm to 10 ppm in a fluidized bed containing the pellets. The study also involves the measurement of effective diffusivity of cupric ions in calcium alginate gel as well as the kinetics of the reaction system in a fluidized bed. Success of the study could lead to a new process for efficient removal of low levels of toxic metal ions (cupric and others) from waste water.